EAGER: Site-specific engineering of DNA methylation states in plant genomes

This project will engineer chemical features of plant genomes as a prelude to understanding how those features control plant traits. In plant genomes, many cytosine residues are chemically modified by addition of methyl groups. The presence of DNA methylation is often correlated with changes in gene expression, but how such changes influence specific traits is not well understood. This research will develop and implement methods for adding or removing DNA methylation at specific sites in the Arabidopsis thaliana genome, thereby paving the way for analyzing the effects of DNA methylation on gene function. Research goals will be achieved in collaboration with high school and graduate students, who will obtain valuable experience in state-of-the-art genome engineering technology. This kind of technology could have broad impact in both basic and applied plant biology by providing a way to control gene expression states without changing the DNA sequence.

Epigenetic modifications to genomes, such as methylation of cytosines in DNA, are widely known to be associated with changes in phenotypic traits. However, there is currently no systematic method to directly test the causality of these observations. This project aims to develop a set of universal tools for site-specific engineering of DNA methylation states in plant genomes. To modulate DNA methylation states at specific regions of the genome, enzymes that control DNA methylation will be tethered to targets of interest using the CRISPR-dCas9 system. The approach will first be developed in the yeast, Saccharomyces cerevisiae, as it has a small, unmethylated genome, which will permit easy evaluation of both on- and off-target changes in methylation states. Once optimized for yeast, the methods will be deployed in the model plant, Arabidopsis thaliana, to target site-specific methylation and de-methylation. The tools developed through this research will make it possible to test hypotheses relating differential methylation states and phenotypes to enable "reverse epigenetics" approaches for predictive studies of gene function and for gene discovery.

This award was co-funded by the Genetic Mechanisms and the Systems and Synthetic Biology Programs in the Division of Molecular and Cellular Biosciences in the Biological Sciences Directorate.